Initial Stages of Interface Formation

Experimental investigations on the stability of the interface between an arsenic overlayer on a silicon substrate, and between silicon films and high-Tc oxide substrates. In the arsenic- silicon work, low-energy electron diffraction will be employed to determine structural changes caused by varying temperature and arsenic coverage. Exploratory studies on the effect of adding gallium to the arsenic-silicon interfaces will also be carried out. In the high-Tc oxide-silicon work, electron spectroscopies will be used to determine the thermal dependence of chemical reactions between the superconductors and silicon.